Acquisition of a CCD Imaging System to Complete the Yale-San Juan Southern Proper Motion Program

van Altena, William F. AST-9870972 Funds will be used for acquisition of instrumentation to complete the Yale-San Juan Southern Proper Motion Study. Completion of this study will allow for unique studies of galactic structure and dynamics. ??